Mathematical Sciences: IMS 225th Special Topics Meeting: Variations on the Likelihood Principle; October 25-28, 1992,University Park, PA

This proposal will partially support the participant costs to a conference on Variations on the Likelihood Principle. The meeting will be of two-and-one half days duration and will feature leading active researchers from a wide range of subjects within likelihood. One goal of the conference will be to foster interaction and the dispersion of scientific knowledge among workers linked by the common thread of likelihood. A second goal is to provide a stimulus to young researchers and graduate students in this area. This proposal will partial support the Institute of Mathematical Statistics 225th Special Topics Meeting: Variations on the Likelihood Principle, to be held in on the Pennsylvania State University Campus, October 25-28, 1992.